Cincinnati Creates Companies

0227801
Harrison

This award is to University of Cincinnati College of Medicine to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 02060).

Partners
The partners include University of Cincinnati College of Medicine (Lead Institution), Children's Hospital Medical Center, BIO/START, Emerging Concepts, Inc, Greater Cincinnati Chamber of Commerce, and the Hamilton County Business Center.

Proposed Activities
The proposed goals include the following: (1) recruitment of potential entrepreneurs from all socioeconomic and cultural groups represented in the region, (2) establishment of a nine month education program that includes product feasibility assessment, concept development, business plan development, implementation planning, financial strategies, management, marketing etc, (3) providing assistance in technology and business support, (4) connection with federal and state financial assistance and grants such as SBIR or STTR, and (5) referral to venture capital funds in the various technology sectors. The following innovations are proposed: (1) stimulating the transformation of knowledge created by the national research and education enterprise into successful businesses that create economic well-being, and (2) providing and enhancing the available infrastructure to foster and sustain innovation in the long term.

Potential Economic Impact
The goal is to increase the number of new sources of higher-paying jobs, and to mobilize the underrepresented populations in the region by providing training, technology and business support, and connecting entrepreneurs with sources of capital for their companies.

Potential Societal Impact
The creation of new jobs will have a significant impact on the region. Involvement of underrepresented groups in technology-businesses has obvious societal implications.